Processing Recycled Plastic into Fibers for Reinforcing Concrete

9634826 Carroll Plastics fibers are widely used for reinforcing concretes. Fiber-reinforced concrete is more valuable than plain concrete since it is more durable and less susceptible to cracking. However, the processing of the fiber-reinforced converting recycled plastics into fibers for low cost processing of reinforcing concrete. Currently this process is not well understood in determining the optimize process parameters. This research project will develop mathematical models for the process and demonstrate the parameters effects on the properties of the fibers produced experimentally. The experiments will be conducted using a laboratory scale machine to process the recycled fibers. This project has a balance between theory and experiment. The outcome of the research project has potential to make the low cost processing of fiber reinforced concrete feasible.